Disposable Electrodes for Anodic Stripping Voltammetry Analysis of Heavy Metals

Heavy metal contamination is quickly becoming a major threat to our quality of life. Heavy metal analysis has consequently become a necessary procedure in field settings, remote from the well-equipped laboratory, for example in environmental cleanup efforts or in screening children for lead poisoning in public health clinics. Currently most heavy metal determinations are made by graphite furnace atomic absorption spectroscopy (GFAA) or anodic stripping voltammetry (ASV). At present, however, the application of GFAA and ASV to metal analysis is largely limited to bench-top laboratory settings, carried out under the supervision of skilled professionals. ANDCARE proposes the development of a rugged, disposable, ASV electrode; ideal for use in the field and the small-laboratory. ANDCARE will utilize a new approach: screen printing methods combined with spotting, air spray, or electrodeposition of colloidal gold for the cost-effective production of single-use ASV electrodes with reproducible operational characteristics. The expected result of this Phase I project is to demonstrate high performance, printed, single-use ASV electrodes for the analysis of trace heavy metals